Upgrade of Computing Facilities for Global Seismology at the University of Arizona

0651540
Beck

This grant supports upgrade of the seismology computing facilities in the Department of Geosciences at the University of Arizona. Funds will be used to: 1) upgrade networking infrastructure; 2) acquire a hard disk mass store, tape backup and file server; and 3) acquire 12 iMac workstations and related software. The computational upgrade will facilitate a range of NSF funded seismological research on lithospheric structure and orogenic processes in mountain belts, crustal and mantle anisotropy, earthquake source studies, and lithospheric structure of major strike slip fault zones. The computational equipment will support one postdoctoral researcher, eight Ph.D. students (1 female and 3 international students) and 1 undergraduate student. The upgraded facility willl enhance PI participation in collaborative, interdisciplinary, and international projects, including EarthScope and Continental Dynamics projects.